Housing at Cedar Creek Natural History Area

This project will underwrite the construction of additional housing for scientists near the main laboratory at the University of Minnesota Cedar Creek Natural History Area (CCNHA). "Pre- built" units will be used to eliminate most of the University-mandated costs of planning for new construction. The accommodations meet local building codes and to provide handicap access. The support includes funds for housing, site preparation, electric utilities, well, septic system and complete furnishings. These new accommodations are required to meet the demand imposed by an ever increasing group of researcher at CCNHA. The research being performed at CCNHA has expanded greatly assistants, 18 graduate students, 9 post-doctoral researchers, and 19 faculty from other institutions working at Cedar Creek. Almost all of these require on-site housing because it allows them to more easily complete their research and be more a part of the Cedar Creek intellectual community. In addition, 21 UM faculty, the data manager, the site manager, and the chemist will be working at Cedar Creek, but will not require housing.